Integrating Parallel Processing into the Undergraduate Computer Science Curriculum

This grant supports the development of an undergraduate parallel processing laboratory based on the INMOS T800 transputer chip. This lab consists of three IBM PC/AT compatible microcomputers, one containing a reconfigurable 16-node Transputer network and the others containing Transputer software development nodes. The laboratory is not dedicated to a specific course, but is used to illustrate applications of concurency where it naturally arises throughout the computer science curriculum. This project significantly enhances the undergraduate computer science program by providing the practical reinforcement necessary to fully understand parallelism. The institution is providing matching funds in an amount equal to or greater than the funds provided by the Foundation.